ADVANCE Institutional Transformation Award: For the Future of the UNC Charlotte Faculty

Following a four-year self-study to explore equity, diversity, and inclusiveness, UNC Charlotte is poised for transformation into an institution where all faculty perceive that access to power, rewards, promotions, and leadership opportunities are equitably distributed.

Project goals are focused on the recruitment, retention, and advancement of women in STEM faculty positions and women in university-wide leadership positions. Strategies for change focus on structural reform, broad faculty awareness and engagement, and decision-maker accountability. A Faculty Affairs Office (FAO) will serve as a sustainable structural focal point for policy revision and a portfolio of programs designed to foster awareness, seek solutions, and disseminate project actions and outcomes. A competitive awards program will engage academic units to examine the status of women, including women faculty of color, and develop creative approaches for the specific needs of the unit. The FAO will be located in the Provost's Office to facilitate administrative accountability for making gains towards ADVANCE goals.